Advanced Computational Research in Electromagnetic Wave Interactions

Contemporary high-frequency electromagnetic engineering problems can involve full-vector wave interactions with complex, electrically-large, three-dimensional structures. Numerical simulation of Maxwell's equations for such structures is of great importance since the classical analytical tools for electrodynamics cannot deal with vector near fields that may be almost arbitrarily complex. Two of the primary contemporary thrusts in numerically modeling such problems are: (1) the frequency-domain integro-differential equation approach with solution via the method of moments (MON); and (2) the time-domain partial differential equation approach with solution via the finite-difference time-domain (FD-TD) method. This research project will develop Connection Machine (CM) software for the latest versions of MOM and FD-TD, construct benchmarks relative to Cray-based versions, and develop scaling rules for CM processing of ultra-large near-field data bases. This project will also extend a new spatial decomposition (SD) technique to the latest combined-field surface integral equation versions of MOM. SD is very promising for reducing the dimensionality and ill-conditioning of large MOM problems, and may permit existing computers to process very large EM models.